Mathematical Sciences: Mathematical Physics and Noncommutative Differential Geometry

9404481 Getzler The research entails a number of topics in the relatively new area of topological field theory with applies methods of homological algebra and algebraic topology to concepts in modern quantum field theory and superstrings. Particular importance will be paid to the development of the cyclic Chern character and the index of classes of pseudodifferential operators in the setting of non-commutative differential geometry. The topics studied here are considered as fundamental in modern mathematical physics. ***